CAREER: Multiple Environmental Gradients Structuring Peatland Communities

9629415 Bridgham The goal of this research is to understand the important factors that structure peatlands in space and time. Major attributes of interest are plant community composition, net primary production, accumulation of carbon in soil organic matter, and trace gas emissions. It is hypothesized that four major environmental gradients (climate, pH/alkalinity, water-table height, and limiting nutrients) are the primary factors structuring peatland ecosystems. Previous research has focused upon climate change impacts on peatlands and the potential enhancement of trace gas emissions under future climatic regimes. An additional parallel research program will be conducted that focuses on the relative roles of nutrients and alkalinity as major factors influencing peatlands. Innovative educational activities will be integrated with an active research program to provide students with first-hand experience in the theory and practice of ecology.